Mathematical Sciences: Computing Equipment for Function Estimation and Inference for Stochastic Processes

9406979 Taylor The Department of Statistics at the University of Georgia will purchase, at an estimated discounted price of $48,374 ($24,187 requested from NSF and $24,187 cost shared by UGA), computer equipment will be used for several research projects, including in particular, bootstrapping, function estimation, and inference for marked spatial and spatio-temporal point processes.